CIF: Student Travel Support for the 2013 IEEE International Symposium on Information Theory

The International Symposium on Information Theory (ISIT) is the premier annual information theory conference worldwide, and thus a valuable forum for graduate students in this discipline to present their work, receive feedback from other researchers working on similar or related topics, and to make professional acquaintances within the discipline. This award provides international travel funds to be awarded to students who have a paper accepted at this year's ISIT and who otherwise would not have sufficient travel funds to attend the symposium. As information theory is a core component of the Communications and Information Foundations cluster, the efforts to ensure participation of graduate students in this symposium are consistent with NSF's goal of promoting education and research of the next generation of scientists.